A Computing Center for Undergraduate Science and Mathematics

A computing facility has been established to support curricula in mathematics and the sciences. The computing center's mission is the education of students in computed aided data analysis and presentation such as that they will encounter in the workplace and in graduate education. The close coupling of the graphics-based computing facility and a series of courses integrates in a unique way the viewpoint and intellectual ecumenism characteristic of small colleges with the data analysis and presentation rigor found in specialized programs. The grantee provides funds for this project that are an equal match for the NSF award.